Bienzyme Electrodes for Interference-Free Detection of Specific Biomolecules

This Small Business Innovation Research (SBIR) Phase I project is in the general area of analytical and surface chemistry and in the subfield of biosensors. The objective of this research is to evaluate the feasibility of an improved biosensor electrode which uses a two enzyme relay that is coupled to a sensing electrode via a modified polymer-mediator complex. The overall goal of a multiphase SBIR effort is to develop improved amperometric biosensors based on electrical communication between horseradish peroxidase (HRP) and several new polymeric electrode relay systems. The design strategy is to use an electrode modified with HRP to detect the hydrogen peroxide formed by the selective reaction of a substrate with an oxidoreductase enzyme. Electrical communication between the HRP and cathode is effected by several new polymer systems which improve stability and optimize the response. Because the final reaction is cathodic, this type of sensor has the advantage of being able to operate at applied potentials where the detection of common electroactive interferents does not occur. %%% The research plan for this SBIR Phase I project is designed to account for traditional problems encountered in the assay of blood-based analytes and should determine the feasibility of moving forward into a Phase II effort. If successful, this technology has significant commercial potential.